The Effects of Problem-Based Instruction on the Geometric Knowledge of High School Students

The Curriculum and Evaluation Standards for School Mathematics of the National Council of Teachers of Mathematics calls for a shift in paradigm in the teaching of school mathematics from skills-based instruction to problem-based instruction. This proposal describes a research project in which the effects of problem-based instruction on the concepts and thought processes of high school geometry students will be studied. Over the course of the proposed three-year project, a teaching model which focuses on student solving of problems and which is accessible to students of varying abilities will be designed. The effects of the instruction will be assessed from two contrasting yet interactive perspectives--use of problem-solving processes and knowledge of particular geometric concepts. The geometric problem-solving processes to be investigated include the abilities to (a) generalize from empirical evidence, (b) generalize using deductive evidence, (c) deal with reverse trains of thought, (d) flexibly refocus a train of thought, and (e) visualize a geometric situation. The geometric concepts to be investigated include the concepts of (a) proof, (b) infinity, (c) similarity and congruence, (d) area, perimeter, and volume, (e) parallelism, and (f) transformations. Data collection will be three-fold, including (a) teaching experiments with individual students to assess particular instructional approaches; and (b) teaching experiments with intact classes to assess the changing nature of instruction and classroom interactions; and (c) status testing to document developing concepts and processes. This project is jointly funded by the Instructional Materials Development Program.